Constraints, Logic Programming and Rule-Based Systems

The Constraint Logic Programming (CLP) scheme of languages provides a framework for reasoning with symbolic and numerical constraints and for linking these methods of computation. It also provides a method for tailoring constraint logic programming languages for specific applications. The research plan includes: (1) to implement sequential and parallel versions of a canonical for algorithm developed by Lassez and McAloon for solving and maintaining systems of constraints and rules, (2) to work on constraint solving techniques for use in implementations of CLP(R) and other constraint logic programming languages, (3) to embed this work in the inference and constraint solving engines of a CLP language called 2LP specifically intended for application to constraint based reasoning and to mixed integer linear optimization problems, (4) to work on a sequent calculus approach to reasoning with constraints, on canonical forms in a general setting and on computational complexity issues. This research can lead to new intelligent systems for dealing with applications classically handled by mixed integer linear programming in the areas of financial applications or resource management and to development of user friendly general purpose applications software for constraints and optimization.